Community Space and Cyberspace, CPSR DIAC97 Symposium, March 1-2, 1997 Seattle, WA

This conference facilitates discussion among a diverse group of people on the directions and implications of computer networking technology in society. The theme of community values in relationship to computer and communication technology development will be explored. The foci are: children and education, civic and community values, economic systems, and cultural values and diverse communities. The fifth theme is critical issues including universal access, media ownership and control, Internet censorship, telecommunications activism, etc. The plan includes a second day of community oriented workshops to build action agendas and recommendations, and the production of high quality printed and electronic proceedings to extend the reach of the conference beyond the actual event. Attendees, endorsing organizations, and workshop organizers will be able to have their statements included in the conference web site, to enrich the dialogue among stakeholders and add issues, data, and relevance to the research agenda on community use of networking technology. The Home Page address for information about the conference is <http://www.scn.org/tech/diac-97>.